Magnetotransport and Millimeter Wave Spectroscopy of a Partially Filled Landau Level

9705521 Du This experimental research project is a study of magnetotransport and millimeter wave spectroscopy of the 2-D electron gas in the fractional quantum Hall effect regime, specifically the properties of composite Fermions in a partially filled Landau level. The experiments open a new window to probe dynamics of the quantum Hall system. The internal structure, ie, the dispersion w(q) of the bound states, and the inherent fluctuations of the bound states, will be investigated. Millimeter waves tunable in energy from 1-10K will couple into the 2-D gas via a surface metal grating or periodic density modulation, and a sensitive differential photoconductivity technique will be used for detection. The experiments will also involve nanostructure techniques such as high-resolution electron-beam lithography and processing. %%% This experimental research project is devoted to basic properties of a conducting electron system when confined into a two- dimensional planar region. Such a confined set of electrons at low temperatures and with high magnetic fields exhibits a very unusual set of characteristics, and in some ways the entities which are relevant are not electrons behaving as they behave in vacuum, but "quasi-particles" having separable spin and charge properties. The "composite Fermions" of this situation are to be studied by shining radio waves onto them and making measurments to determine the response to the radio waves. On the one hand the experiments will provide new basic information about electrons when they are in interaction in confined layers at low temperatures. On the other hand the device structures which are used in these experiments are similar to those used in advanced microelectronic devices in the GaAs technology. This research will involve students who will be well trained in the area of physics and will also gain familiarity with semiconductor device technolgy, and who will be excellently trained for employment in industry, government, or education. ***